Middle High German Interlinked: A Full-Text Archive and Medieval German Dictionaries Collaboratory

The project will explore and demonstrate the possibilities and advantages of international cooperation for the creation and delivery of complex literary and linguistic documents as encoded XML files. The University of Trier brings strong computer science, lexicographical, and philological expertise to the project. The University of Virginia Library and other departments have a long and successful record of applying SGML and XML encoding to humanities and other textual material, along with considerable capabilities for online delivery for tens of thousands of text. This particular project will bring these strengths to bear on Middle High German Interlinked, a full-text archive and Medieval German Dictionaries collaboratory. Prior efforts at Virginia to interlink the Oxford English Dictionary with texts of Early American fiction have been of value in examining the influence of pre-1850 American fiction on the development of the modern English language and usage. Part of the project will be focussed on evaluation and implementation of web interfaces for multiple user communities.